Presidential Faculty Fellow

9350374 Laurent Dr. Laurent's goal is to develop an interdisciplinary research program to study information processing and circuit design in the brain, and understand fundamental aspects of neural computation. Dr. Laurent's teaching plans are to broaden the scope of Neurobiology teaching in the Caltech Computation and Neural Systems graduate program, and to create a new interdisciplinary course on Motor Systems.